Temperature--Not Chromosomes--Determines the Sex of Certain Lower Vertebrates

In contrast to the sex chromosome systems of mammals and birds, the sex of many reptiles is determined by the incubation temperature of the egg (temperature-dependent sex-determination, or TSD). Sex determination under TSD can also be controlled by the artificial application of specific steroid hormones, whereby the effects of temperature are overridden. The proposed work pursues this interplay in a turtle with TSD. The study has two specific aims. The first aim is to study further the physiological bases of TSD by (i) localizing key enzymes during the temperature-sensitive window, and (ii) capitalize on a recent discovery that exogenous androgen can cause male development. The second aim extends our line of research into the molecular biology of TSD/HSD to identify, map, and quantify steroid hormone receptors in the developing embryo. Together these studies will serve to generalize and unite anatomical, physiological, and molecular observations. The basic research proposed here has applications to the conservation of endangered reptiles.